International Research Fellow Awards: Pleistocene Faunas of Bolivia

9703937 Shockey The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Bruce J. Shockey to work with Dr. Federico Anaya Daza at the Museo Nacional de Historia Natural in La Paz, Bolivia. Dr. Shockey will be studying the Pleistocene faunas of Bolivia. To do this, he will work with Dr. Daza on: conducting field work at Pleistocene (Ensenadan and Lujanian) localities and assist in the curation of specimens for the Museo Nacional de Historia Natural (MNHNBol). Specifically he will carry out work describing selected specimens of ungulates, work on environmental reconstructions based on morphological studies and stable isotopic analysis of enamel; and coordinating studies of nonungulate taxa discovered with international researchers. The low latitude, which places Bolivia nearer to the continental gateway for the North American immigrants than Argentina; elevational gradients, which offer opportunities to sample a range of adaptations that may have been required for the immigrants to breech rugged barriers to the continent; and the environmental diversity, ranging from rain forest to the high, cold, and arid Altiplano of Bolivia, make it a virtually ideal country in which to study the interaction of immigrant and native ungulates during the Pleistocene. ***